MRI: Acquisition of an Imaging XPS for Materials Research and Training

0216197
Chilkoti
A group of investigators at Duke University and North Carolina State University request funding to purchase an imaging X-ray photoelectron spectrometer (XPS) for the shared use of faculty. This request is motivated by an urgent need for contemporary surface analysis tools, especially XPS, in the research of participating faculty and the lack of such instrumentation currently at Duke University or in the Research Triangle area for shared use. The proposed Axis Ultra (Kratos Analytical Inc.) instrument allows XPS of both conductors and insulators with an energy resolution of <1 eV and a spatial resolution of ~10 um. This instrument will be used by the research groups of nine faculty at Duke University in the following departments: Biomedical Engineering (Chilkoti, Reichert and Truskey), Chemistry (Craig, Grinstaff, Liu, and Pirrung), Materials Science and Engineering (Zauscher), and Electrical Engineering (Massoud). In addition, two faculty at North Carolina State University in Chemical Engineering (Genzer) and Chemistry (Gorman) are also core investigators in this proposal, because of their pressing need for high spatial- and energy-resolution XPS in their research. The instrument will be located in the Shared Materials Instrumentation Facility in the Levine Science Research Center at Duke University, and will be used in diverse projects that require high spatial and energy resolution XPS.